Investigating Children's Concepts of Light and Vision in a Science Museum

This exploratory project will study the intuitive notions of light and vision that are held by children ages 10-14. A novel feature of this work is that it takes place in a science museum and uses interactive exhibits as the tasks that mediate the interviews with the children. The project is expected to yield results that are novel and that complement those obtained from work done in the school setting. The specific aims are: (1) to expand the existent empirical data on the explanations given by children by exploring the subject matter area of optics-shadow-formation, images and color; (2) to determine the nature of tasks, activities and experiences that enhance conceptual understanding and aid the child's development of scientifically valid concepts; (3) to determine what overall organizing principles are most useful for the researcher and for the teacher. The project will begin to explore the practical applications of this research for (1) exhibit design and, by extension, classroom activities; (2) the use of hands-on museums for exhibit-based learning and teaching; (3) strategies for enhancing concept acquisition that can be used for curriculum development and teacher education in both formal and informal settings.